PostDoctoral Research Fellowship

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2). This award is made as part of the FY 2022 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Benjamin Lovitz is "Tensors: Geometry, Matroid Theory, and Entanglement". The host institution for the fellowship is Northeastern University, and the sponsoring scientist is Harm Derksen.